Investigations in the Microscopic Theory of Nuclear Structure and Reactions

The recoil-corrected continuum shell model will be used to calculate (k+,k-) cross sections for the production of doubly strange hypernuclei, and nucleon knock out reactions induced by electrons and pions. Calculations for eta-photoproduction on nuclei will be carried out.